Academic Research Infrastructure: Jarvis Christian College Science Research Training Equipment Acquisition

9601737 Scott , T. Gordon Puttaparthi, Krishna Jarvis Christian College Academic Rearch Infrastructure: Jarvis Christian College Science Research Training Equipment Acquisition This Academic Research Infrastructure award supports the acquisition of computer and laboratory equipment for computer modeling and environmental science. The research projects supported by the award include faculty and undergraduate research on molecular synthesis, environmental science, and molecular modeling.